Instrumentation and Automation Upgrade for Lamont Marine Sediment Analysis Facility

This award will support the purchase of new instruments to upgrade and automate the sedimentology laboratory at Lamont Doherty. New equipment includes a cabonate coulometer, element analyzer for organic C and N, and particle-size analyzer. A LAN system will be installed so that all researchers have access to a common database.